Graduate Engineering Initiative: A Partnership Between NSF, Cornell University, Arecibo Observatory, and Universities in Puerto Rico

A partnership will be formed between Cornell University and key engineering institutions on the island of Puerto Rico (initially to include the Puerto Rico Resource Center for Science and Engineering, the University of Puerto Rico at Mayaguez, and the Polytechnic University), to identify star students early in their undergraduate careers. These students will be resident on the Cornell campus for one summer of course work and either on campus or at the Arecibo Observatory in Puerto Rico for one research-intensive summer. The students will, where appropriate, be encouraged to apply to either the M.S./Ph.D. program directly or to Cornell's one-year M. Eng. Program. With summer research experience and the chance to excel in the M. Eng. Program, we believe many of the later students will also be able to continue to the Ph.D.